Models of Extragalactic Jets

Models of extragalactic radio jets will be constructed using a variety of numerical approaches. An essentially three-dimensional boundary-following code will be used to continue to investigate the formation and evolution of radio jets. In particular, the bending of jets by ram pressure as the central galactic source moves through an external medium, the growth of non-axisymmetric instabilities, and the effects of a precessing source of jet fluid, will all be studied. Recently developed analytic models of jet propagation from a galactic halo across a pressure-matched interface into an extremely hot intergalactic medium will be developed further. Preliminary calculations using this idea seem to provide good explanations for both the current average size of strong radio sources and the fact the such sources were significantly samller at earlier cosmological epochs. Numerical models of this situation will be developed using both the three-dimensional boundary following code and a full two-dimensional hydrodynamics code and more detailed comparisons with statistical data will be made. Analytic models for jet instabilities will be applied to Very Large Array (VLA) radio maps of a particularly interesting radio source with a single, oscillatory jet feeding into a diffuse lobe. A general model for the continuum electromagnetic emission from active galactic nuclei, based on coherent plasma processes, will be further developed and compared with observations.